Mathematical Sciences: Differential Equations, Probability, and Applications

Broad areas of mathematical analysis will be covered by work to be done. The central theme is partial differential equations, both theory and applications. In addressing a variety of a fundamental questions techniques will be employed from probability, topology, calculus of variation and geometry. The equations arise from diverse sources such as mathematical physics, liquid crystals, nerve conduction, elasticity and fluid dynamics. Among the specific topics addressed are questions concerning fully nonlinear elliptic equations. Typical of these is the Monge-Ampere equation. In contrast to classical partial differential equations, the fully nonlinear ones are not solvable in all domains. To date, strictly convex domains have provided satisfactory solutions, but a determination of natural conditions on domains for solvability is not yet on the horizon. Recent progress in the use of variational methods on nonlinear problems has produced important information regarding the existence of time-periodic solutions in vibration problems. Using index concepts it has been possible to determine multiple solutions of minimal period. The index concept will be studied further in the context of general nonlinear wave equations to find analogous period solutions of minimal period. The appearance of theta functions in the theory of integrable Hamiltonian systems of differential equations such as the Toda lattice and Korteweg - deVries equations suggests that analogous functions and geometry lies behind most of the classical infinite systems. Efforts in several specific cases have borne fruit in the establishment of a complete apparatus of curves, divisors, differentials, Abel sums etc. in each case. Further work will continue along these lines. Other work will focus on similarity of nonlinear flows for partial differential equations, on the failure of scattering in Burger's equation and on resonance of continuous spectra. The conclusions of Hartman's major result on similarity of solutions of ordinary differential equations to solutions of linear equations do not apply when one goes over to infinite systems, leaving many important questions unanswered at this time.